Targeted Infusion Grant: Development of a GIS Certification Program and Preparing for GIS Accreditation at North Carolina Central University

North Carolina Central University, through the HBCU-UP Targeted Infusion Project, will develop curriculum leading to two certification options in Geographic Information Systems (GIS) for students: GIS certification through an independent certifying body for geography majors; and offer in-house GIS certification to students and faculty from other Science, Technology, Engineering and Mathematics (STEM) majors.

Through funding, the Geography and Earth Sciences Department will create additional courses and revise current offerings to adequately prepare geography majors for certificate examinations from an independent entity, the American Society of Photogrammetry and Remote Sensing (ASPRS). Faculty at NCCU will work collaboratively with ASPRS to develop a certification process for students. Additionally, NCCU faculty will develop GIS modules for courses offered to STEM majors and create and offer an in-house NCCU certification for STEM majors.